SHF: Small: Dynamic Power Management in the Dark Silicon Era

Future heterogeneous multicore microprocessors are expected to be so
power constrained that not all transistors will be able to be powered
on at once. The general-purpose cores will be required to nimbly
adapt to severely constrained power allocations when power is diverted
to accelerators, and vice versa. In addition, energy-aware scheduling
of threads to cores is becoming imperative as multicore architectures
become more heterogeneous. This research develops power gated
multicore architectures and integrated scheduling and power allocation
algorithms for maximizing throughput given varying and potentially
stringent limits on allocated power.

One facet of the research is the design, synthesis, and evaluation of
power gated general-purpose and data-parallel accelerator
microarchitectures comprised of deconfigurable lanes--horizontal
slices through the pipeline--that permit dynamic tailoring of each
core to the application. The goal is to demonstrate tolerable
performance and power-gating overheads yet flexibility in adapting to
workload behaviors. A second aspect of the work is a new optimization
approach that efficiently finds a near-global-optimum configuration of
lanes and thread-to-core assignment without requiring offline training
or foreknowledge of the workload. The approach combines reduced
sampling techniques, adaptation of response surface models to online
optimization, incorporation of limited online profiling information,
and heuristic online search. The research will improve the
computational capability of future severely power-constrained devices;
involve undergraduate, graduate, and/or postdoc women engineers; and
be incorporated into computer architecture and heuristic optimization
classes.